A vBNS Connection at New Mexico State University

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in cosmology, planetary data, information retrieval systems, computer and communication network activity tracing, electromagnetic field modeling, parallel scientific computing and biotechnology. Collaborating institutions include Sandia National Laboratory, Jet Propulsion Laboratory, National Center for Supercomputer Applications, Los Alamos National Laboratory and several NASA sites.